CAREER: Formal Methods for Approximate Computing

Nowadays, power and energy constraints are the main driving force of
improvements in computing abilities, and approximate computing has emerged as a
promising technique for enabling these improvements. The main idea behind
approximate computing is to trade the accuracy of computations in order to
enable novel optimizations that improve performance or energy efficiency. This
leverages the fact that many applications are resilient to errors to some extent,
and hence do not require absolute correctness of computations. Clearly, developing
software for future approximate computing platforms will not be an easy task: a
developer must introduce as many approximations as possible, while at the same time
ensuring that correctness and the results quality requirements of an
application are met.

This project explores automated techniques and tools to assist developers by
allowing them to explore approximate computing trade-offs. The techniques are
based around a rigorous, automated, and precise analysis of program
approximations. The main novelty is to leverage recent advances in automated
software verification in the context of approximate computing. The project will
develop an open platform for the rigorous analysis of approximate programs.
By focusing on improving developer's experience when writing code for future
approximate computing platforms, this work has the potential to achieve significant
impact across a wide spectrum of industries and applications.